Opportunities in Chemistry: Today and Tomorrow

This proposal concerns support for printing of a National Academy of Science book about chemistry, and distribution for teachers and students in conjunction with "Chemistry Day". The schedule of this event is very short, and a principal virtue of the activity is its role in encouraging participation of practicing research chemists in the problems of science education. So the proposal was given special ad hoc review by SEE staff members. The subject matter disparate judgments are infact quite consistent, and the views of the proposal's strengths and weaknesses are both clear and consistent. The subject matter is a well recognized study of the state of chemistry research. The audience and impact are worthwhile though limited. Without NSF support, it is doubtful that the volume is viable. The support requested is nominal and the funding is largely supplied by other sources: NAS and private corporations. Responding to suggestions from the scientific community, the NAS is seeking to expand dissemination of the report, OPPORTUNITIES IN CHEMISTRY, to the high school level. A special edition of the report, suitable for high school chemistry teachers and advanced placement students is being prepared to be available nationally. The bulk of the costs..fees to the authors, printing, and distribution..are being borne by the NAS and by non.federal organizations dedicated to the welfare of chemistry, including the American Chemical Society, and the Council for Chemical Research. This proposal requests $25,000 from NSF as partial support for supplemental printing and distribution of the report, in an overall budget of $95,000.//